Electronic and Geometrical Structures of Molecules

In this project in the Theoretical and Computational Physical Chemistry Program of the Chemistry Division, Prof. Lipscomb will carry out studies of geometrical and electronic structures of molecules with objectives of obtaining information about the stable states and the transition states of chemical reactions. Studies of boranes and their derivatives, including the condensation of diborane to form the higher hydrides of boron, will require extensive corrections for correlation of electrons in searching for transition states. Theoretical studies of enzyme mechanisms are aimed at elucidation of entropy effects, binding of the transition state, catalytic steps, solvent effects, enzyme environment and dynamical effects to establish principles for construction of artificial enzymes as catalysts.